Public Education About Biodiversity

9453023 Taylor The American Museum of Natural History is developing a 10,000 sq. ft. Hall of Life's Diversity that will interpret biodiversity, what it is, why it matters to humans, why it is under threat, and what can be done to mitigate the current pattern of extinctions. The hall will have the following sections: a) the Crisis Center that will serve as the orientation place for the exhibit and where the core principles of the exhibit will be interpreted, b) four interactive habitat models that depict major ecosystems, c) the Spectrum of Life, in which specimens, models, photographs, and interactive multimedia will be juxtaposed and will serve as a field guide to the array of animal and plant life on the planet, d) a Resource Center that is devoted to educational activities, and e) a theater/classroom space. The intended audience for the exhibit is people of all ages and learning styles. The exhibit will illuminate the crucial role that science plays in our everyday lives and will promote science literacy among adults and children. In addition to the main exhibit, there will be a broad menu of complementary programming including traveling versions of the exhibit, a teacher resource guide, and a teacher-training institute. The exhibit and complementary activities are to be coordinated with New York State's State Systemic Initiative program.